Theoretical Computer Science at Hebrew University

Medium-term Research: Theoretical Computer Science at Hebrew University This award recommendation is made under the Program for Long and Medium-Term Research at Foreign Centers of Excellence. The program is designed to enable young U.S. scientists and engineers to conduct long-term research abroad at research institutions of proven excellence. Awards provide opportunities for the conduct of joint research and the utilization of unique or complementary facilities, expertise and experimental conditions in foreign countries. The award will support Dr. Joel Friedman, Princeton University, for a five-month visit with Prof. Avi Wigderson, Hebrew University, Jerusalem, Israel. The award recommendation provides funds to cover, as appropriate, international travel, local travel abroad, stipend, dependents allowance, if applicable, and a flat administrative allowance of $250.00 for the U.S. home institution.